Experimental Studies of Metal-Insulator Transitions and Superconductivity

They should study how spatially varying potentials affect the states of interacting quantum and classical systems. Experiments will be performed on superconducting arrays, semiconductor heterojunctions, density-wave systems and high-field superconductors.